Upgrade of Computational Equipment for the Rice Earth Science Department

0933811
Levander

This grant supports upgrade of research computing facilities in the Department of Earth Science at Rice University. Funds will be used to purchase a Sun multi dual core CPU server w/ 32 Gb of RAM and 3 TB RAID mass store as well as augmentation of and access to clock cycles on a centralized University grid machine. The latter Rice system is termed SUGaR (Shared University Grid @ Rice) and currently houses 1280 CPUs. Support from this grant will buy 128 additional CPUs, 96 Gb RAM and 12 Tb of RAID storage for SUGaR. The buy in will also allow PIs to access any unused cycles on SUGaR, for which the University provides central support for system administration, power and conditioning. Five PIs and an additional six Rice faculty will benefit from the proposed enhanced computational power for numerically intensive research in geodynamics, seismology, hydrology and physical volcanology.